Rational points on varieties in families, and countable unions of varieties over countable fields

The investigator will work on two projects connected with arithmetic
geometry. The first project is to study the existence of rational
points in algebraic families of varieties, and to build a library of
diophantine subsets of the field of rational numbers, where a
diophantine set in this context means the set of rational parameter
values for which the corresponding variety in a family has a rational
point. In particular, the investigator will explore families whose
fibers are Chatelet surfaces or more complicated conic bundles, for
which the Brauer-Manin obstruction produces interesting diophantine
sets. A long-term goal of the first project is to construct a model
of the integers using diophantine sets, because this would disprove a
conjecture of Mazur regarding topology of rational points and
simultaneously prove the undecidability of the problem of deciding
whether a multivariable polynomial equation has a rational solution.
The second project is to study countable unions of subvarieties over a
countable algebraically closed field, such as the field of algebraic
numbers, and in particular to prove that in naturally occurring
situations, there exists a closed point outside the countable union,
as required for various constructions. Examples include the union of
rational curves in a non-uniruled variety, the moduli space locus of
abelian varieties isogenous to a Jacobian, the locus in the base of a
family of varieties where the Picard number of the fiber jumps, and
unions of subvarieties arising from iteration of endomorphisms of
varieties.

Arithmetic geometry lies at the intersection of number theory and
algebraic geometry: like algebraic geometry, it studies the solutions
to multivariable polynomial equations, but it does so under the
number-theoretic restriction that the coordinates of the solutions be
integers (whole numbers like -37) or rational numbers (fractions like
-3/5) or perhaps elements of some other number system different from
the traditional systems of real numbers or complex numbers. Such
questions were studied for their intrinsic interest since the time of
the ancient Greeks, and in the 20th century they found unforeseen
applications to cryptography and error-correcting codes. The
investigator's research focuses not on these applications, but on the
fundamental questions underlying and surrounding them, such as the
question of whether it is possible to write a computer program to
decide whether an arbitrary multivariable polynomial equation has a
solution in rational numbers. The research covered by this grant will
study patterns in families of equations in the hope of deducing a
negative answer, while also proving the existence of solutions
satisfying infinitely many constraints in a larger number system.